Collaborative Research: The Online Consortium of Pacific Northwest Herbaria Expanded to Include Taxonomically Diverse Specimens from Large and Small Regional Collections

The purpose of this project is to digitize (i.e., image and database) botanical research specimens at nearly twenty university, college, and federal agency herbaria in Idaho, Montana, Oregon, and Washington. Vascular plant, moss, lichen, and fungal specimens will be included in the project. Once digitized, the records will be available online through an existing Web portal (http://www.pnwherbaria.org). The investigators are leveraging the cyberinfrastructure (e.g., Ethernet, servers, technical staff) available at several large universities to build partnerships with smaller institutions that otherwise would not have the resources to undertake this activity.

This project provides tangible benefits to the general public, undergraduate students, and the research community. Digitizing specimens and making them available online creates public access to collections that have been assembled in part through prior federal funding. The specimen data will be downloadable from the Web site, so anyone can use the information to pursue unique interests and questions. Undergraduate students will be involved extensively with imaging and data basing activities, providing them with skills and training applicable to future professional pursuits. Online availability of nearly 2 million Pacific Northwest herbarium specimens will increase access and efficiency for the research community using these collections.